Porous Polymeric films with Ultra-low Coefficient of Friction

This research is about better understanding the mechanisms involved in the lubrication of porous polymer-based surfaces or coatings with ultra-low coefficients of friction. These mechanisms arise from the partial hydrodynamic repulsive forces that act between shearing compliant surfaces. A combination of tribology experiments and simulations will be used to guide the design of a macroscopic porous polymer-based surface to attain minimal coefficients of friction. Specifically, the project will involve the determination of the optimal geometrical parameters of pores within a polymer through simulations and supported by experiments, the determination of the lubrication performance through longevity studies, and the fabrication of a macroscopic prototype of the ultra-low shearing surfaces.

If successful, the research will improve the performance and durability of artificial knee and hip replacement devices. Specifically, these low friction polymer surfaces have the potential to be used as a biocompatible mimic for cartilage and synovial fluid in diseased or damaged joints, which affects a large fraction of the elderly population. Furthermore, these ultra-low friction surfaces may be used as lubricating surfaces in a wide range of machinery involving moving parts. From an educational standpoint, this project will involve underrepresented K-12 students in open house events held at Tulane University. These events will expose scientific principles to middle and high school students in the greater New Orleans area through hands-on demonstrations and experiments with the ultimate aim of encouraging the students to consider science and engineering as future fields of study. In particular, a module involving the friction between shearing surfaces will be included. At the undergraduate level, students from underrepresented groups will be offered research opportunities based on this project.